REU-Site: Undergraduate Research in Field Biology at the Rocky Mountain Biological Laboratory

This awards supports summer research by undergraduates at the Rocky Mountain Biological Laboratory (RMBL). Students will attend the RMBL where one senior investigator will supervise each student's research participation. The 10- week program emphasizes various areas of field biology, and includes attendance at seminars and participation in other group activities.